Conference Participation Support for the Conference Experience for Undergraduates; Fall Meeting-APS Division of Nuclear Physics; Newport News, VA; October 23-26, 2013

This award will provide funds for conference support for approximately 39 undergraduate students (out of a total of 125) attending the fall meeting of the Division of Nuclear Physics of the American Physical Society, in Newport News, VA (October 23-26, 2013). It is the 16th annual Conference Experience for Undergraduates (CEU). The CEU is a natural venue for students who have had an undergraduate research experience to present the results of their work and interact with other students as well as faculty and senior researchers. CEU has been immensely successful in fostering this interaction, which helps students to have a broad introduction and exposure to research across nuclear physics, and to enable senior researchers to get to know some of the junior future leaders.